Presidential Young Investigator Award

This proposal is a Presidential Young Investigator award and the investigator will direct her efforts to problems of national infrastructure management and transportation systems analysis with major emphasis on highways and local roads.